FRG Collaborative Research: Noncommutative Geometry and Number Theory

The interaction between noncommutative geometry and number theory
represents a new direction, which has rapidly matured in the past
few years. The proposed collaborative research project is devoted to
applying the methods and tools of noncommutative geometry to
specific topics in number theory, pertaining to the study of the
explicit class field theory problem (Hilbert's 12th problem), of the
Riemann zeta function and of the L-functions of algebraic varieties.
One anticipated outcome will be a novel understanding of the Weil
explicit formulae as Lefschetz trace formulae in the context of
cyclic cohomology. Another central aspect of the project involves
supplementing Manin's approach to Stark's conjectures for real
quadratic fields (via noncommutative tori with real multiplication)
with ideas stemming from the recent investigation of the quantum
statistical mechanical properties of noncommutative spaces of
Q-lattices modulo commensurability. New results on modular forms and
Hecke operators are expected, arising from the transfer of
transverse geometry concepts and constructions to the setting of
modular forms. The formalism of spectral triples together with the
local index formula in noncommutative geometry will be exploited to
investigate rigid analytic spaces more general than Mumford curves.
Significant progress is also anticipated in the uncovering of the
relationship between residues of Feynman graphs in quantum field
theory and periods of mixed Tate motives.

This collaborative research project aims to shed light on a number
of important topics pertaining to the rich and largely untapped
interconnection between the fields of noncommutative geometry,
number theory and mathematical physics. These topics address central
aspects and open problems, that involve some of the key mathematical
objects in the latter fields, such as the celebrated Riemann zeta
function and its generalizations called L-functions in number theory
and Feynman integrals in perturbative quantum field theory. Their
investigation will be approached in a novel and unified manner,
through the methods of noncommutative geometry, a discipline which
grew out of the fusion between one of the oldest branches of
mathematics -- geometry, and one of the youngest -- quantum
mechanics.